Mathematical Sciences: Analytic and Topological Invariants of Manifolds and Dynamics

The investigation concerns the study of generalized zeta functions and the concept of analytic torsion. Topological questions will be considered along with the dynamics of holomorphic vector fields on complex manifolds. Applications to several deep questions in mathematical physics concerning holomorphic dynamics, are envisaged.